Rationally Connected Varieties

The main aim of the proposal is to study interactions of
algebraic geometry with differential geometry and with number theory.
First, the proposal aims to explore further the connections between
Kaehler--Einstein metrics on Fano orbifolds and Einstein metrics
on odd dimensional manifolds that can be realized as orbifold
cicrle bundles over algebraic varieties. Another aim is to study
the interactions between the geometry of a variety (for instance
group actions or Gromov--Witten invariants) and arithmetic problems
about the existence of points and rational curves defined over
special fields.

If we make a banana or a box out of stretchable material
and we start blowing it up, eventually it starts to look
like a sphere. This happens because the sphere is the
most symmetric way of realizing this shape in space, where
the surface tension is most evenly distributed. For arbitrary
shapes and in higher dimensions, Einstein wrote down
certain conditions for the optimal realizations. These are now called
Einstein metrics. Recently (with Boyer and Galicki) I have discovered
a new method to contruct such Einstein metrics for many different
shapes. A main aim of the proposal is to understand the applicability,
scope and limitations of this method.